Improvement of Instructional Resources in Mathematics

Students understanding of mathematical concepts are being enhanced by the integration of a calculator-based laboratory into the curriculum for all the course sequences from elementary algebra through calculus. The TI 81 graphics calculators help students exploit the connection between graphical and algebraic representations.